To Queue or Not to Queue: New Computer-Aided Decision Assistance for Urban Emergency Services

This project focuses on urban emergency services, particularly police and emergency medical services (EMS). Private emergency repair services and, to some extent, urban fire protection services are also relevant to the research. The goal is to undertake a set of research steps to make the "Hypercube Queueing Model," truly useful for emergency services decision makers. In particular, this research will incorporate into the Hypercube model the most recent trends in police and EMS dispatch operations, such as those emerging from community-oriented policing. Four public agencies, in four states, have agreed to serve as test sites and to provide data to the researchers for this project. The Hypercube model will undergo a set of enhancements that will make it compatible with community-oriented policing, the EMS dispatch environment and other important emergency response systems. The results could be of significant value to municipal emergency services agencies in improving the productivity of their response units.